Individual Nomination for John C. Warner for Excellence in Science Mentoring

HRD-0429931
Dr. John Warner is nominated for his work in Chemistry in recruiting, retaining, and graduating students from underrepresented populations, especially women (60%) and minorities (60%).

The submitted nomination package is in support of a Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) to recognize outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.